Intermolecular Interactions in Aromatic Systems: The Structure and Dynamics of van der Waals Dimers, Excimers andBicimers

Professor Lim is supported by a grant from the Experimental Physical Chemistry Program to study the structure and spectra of van der Waals dimers, excimers, and bicimers (doubly excited) of aromatic hydrocarbons for the purpose of deducing the dependence of the structure on the nature of the electronic state. Experimental techniques will include time- and energy-resolved spectra in absorption and/or emission. A comparison of these intermolecular dimers with the corresponding diaryl alkanes which are their intramolecular dimer counterparts will provide spectral and temporal characteristics from which can be deduced structural features and energetics of vibronic transitions for the three classes of molecular dimers. Theoretical studies of the two interacting molecules as a function of their relative orientation will be combined with the experimental studies for a detailed characterization of these species. %%% The combination of experimental and theoretical approaches is expected to lead to an understanding of the dependence of the structure of the dimers on the nature of the electronic state of the hydrocarbon and contribute to our understanding of energy flow in these systems and the intermolecular forces that hold the pair of molecules together.